From Microscopic to Macroscopic: A Multiscale Numerical Approach

Ta'asan
9805582
The investigator and his colleagues develop multiscale
numerical techniques for dealing with phenomena on a wide range
of scales. The main aspect of the research is the numerical
construction of macroscopic equations in the form of partial
differential equations from microscopic models such as molecular
dynamics models. The numerical techniques focus on fluids
modeling starting from molecular models. Special emphasize is
given to models involving mixtures of several types of
atoms/molecules that may be governed by different interactions.
Such molecular models give rise to complicated physical phenomena
including multiphase flows. A sequence of models is constructed
numerically in an hierarchical manner starting from molecular
dynamics. Each level in this hierarchy represent a larger scale
dynamics (in time or space or both) of the previous level, and is
constructed using statistical tools (regression analysis) applied
to the data resulting from a simulation of the previous level.
The finest level of modeling is given by Hamiltonian dynamics and
is deterministic. Stochastic particle dynamics models are
constructed from the finest level model, and represent the
physical phenomenon on time scale of the order of the relaxation
time. Further coarsening (averaging) in space-time results in
deterministic density evolution models, which can be identified
as finite difference approximations to some partial differential
equation that is the macroscopic limit.
Numerical techniques have been used extensively for several
decades to obtain approximate solutions of partial differential
equations in different fields, and have improved significantly
scientific insights and engineering tasks. The derivation of
those equations, which describe physical phenomena in different
areas, was done by analytical techniques whose use is limited to
relatively simple cases. The treatment of more complex models
cannot, in general, be done analytically and it calls for another
approach. This is the subject of this work: the use of numerical
techniques for 'deriving' macroscopic dynamics equations from
more basic principles given at microscopic levels. This task is
carried out by large scale simulation of the detailed microscopic
models and appropriate statistics. The problems treated in this
work are limited to multiphase fluid flows, which are crucial in
many areas of applications, including medical inhalation devices,
auto and aerospace industries (engines), computer industries
(printers), and more. The techniques developed here, however, are
quite general and apply to other areas in chemistry, physics and
economics, from fundamental questions to real world applications.